PFC: Center for the Physics of Living Cells

In the Center for the Physics of Living Cells (CPLC) experimentalists, computational physicists, and theorists will jointly attack the extreme technical challenges posed by quantifying processes in living cells with the sensitivity needed to explore how life organizes itself, weaving molecular systems into the fabric of living matter. Specifically, the Center will: (1) push in vitro single molecule techniques to a 10- to 100-fold increase in sensitivity, spatio-temporal resolution, and throughput for concurrent detection of multiple observables; (2) use synthetic nanostructures to manipulate single molecules, enabling measurements of both forces and molecular conformation with sub-microsecond resolution; (3) observe individual events within single cells, enabling time- and space-resolved studies of gene expression and other key cellular processes; and (4) extend computation to biologically relevant timescales, and theory to greater biological realism, enabling the detailed interpretation of the dynamics of biological systems from the molecular to the cellular level. The interaction between theory, computation, in vitro and in vivo experiments will be at the core of the Center's mission. A concrete example combining these four approaches will be to build a truly quantitative and dynamic physical picture of transcription and translation machinery, used by the cell to copy DNA into RNA and then into proteins.

The Center will provide exciting educational opportunities on and off campus. For Ph.D. students, the Center will build a community around special seminars, symposia, tailored courses, and joint mentoring, and help generate a new generation of scientists who are fluent in both physics and biology. This new science will be brought to the undergraduate level in the form of courses, online computing and visualization environments, and a single-molecule laboratory course where they can acquire hands-on experience. The Center will recruit minority students into the REU programs and summer workshops through partnership with primarily minority institutions and participation in two annual scientific meetings for under-represented minorities. At the high school level, the Center will expand an existing program in which Ph.D. students can act as mentors for teachers on and off campus, introducing visualization tools and modern molecular biology concepts into the classroom. To address young students directly, the Center will establish a pilot program at a girls middle school. This program will provide contact with students as they begin their formal science education, exposing them to modern biophysical concepts and tools. To the scientific community, the Center will provide visualization and simulation tools to enable the study of macromolecular assemblies and cells. Likewise, the state-of-the-art instrumentation developed by the Center will lead to mainstream applications in biological sciences and is expected to have major commercial impact.

This award is jointly funded by the Directorate for Mathematical and Physical Sciences (MPS) and the Directorate for Biological Sciences (BIO) as part of a partnership to foster research and education at the mathematical and physical sciences - life sciences interface. Participating programs in MPS include the Physics Frontiers Centers program, the Experimental Physical Chemistry program, and the Analytical and Surface Chemistry program. Participating program in BIO include the Biomolecular Systems cluster, the Genes and Genomes cluster, and the Neural Systems cluster.